Support for Curatorial Upgrading of Mollusk Collection, Los Angeles County Museum of Natural History

The Mollusc Collection of the Los Angeles County Museum of Natural History contains more than 400,000 lots and 1,100 types, and is the largest such collection in the western U. S. These specimens are probably the world's best representation of the molluscs of the eastern Pacific. Dr. James McLean, Curator in charge of the collection, has overseen its substantial growth during the past ten years, and he now proposes to complete computerization and curation of the Eastern Pacific gastropods in the next two years. Data entry will be completed for approximately 97,000 lots, and a significant private collection of Alaskan specimens will be integrated into the collection. Dr. McLean's curatorial project will have a significant impact on the research community. Access to specimens in this important collection will be improved substantially, and incorporating the Alaskan material will improve the collection's coverage of the Eastern Pacific. Reference collections such as this are critical resources for research in evolution, ecology, biogeography, global change, and many other disciplines. The continued growth and maintenance of these collections is essential for future generations of biological research.